National Sea Grant College Program, Ocean Science Fellows

Funds are transferred to NOAA to support two 1999 NOAA Sea Grant Fellows within the NSF Ocean Sciences Division. Two highly qualified oceanography graduate students will work with OCE program staff for one year and participate in various activities related to ocean science research and marine education. The Fellows will gain valuable first-hand experience by working on ocean science research policy and administration. The Fellows will work with the Oceano-graphic Technology & Interdisciplinary Coordination Program and the Biological Oceanography Program. The National Sea Grant Federal Fellowship Program is administrated through NOAA's Office of Oceanic Research Programs.